Research Experiences for Undergraduates at the University of Idaho

Professor Thomas E. Bitterwolf and other members of the Chemistry Department at the University of Idaho are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-93, eight undergraduate students will spend eight weeks each summer actively engaged in a variety of research projects. Example projects include photochemistry of dinuclear organometallic complexes at low temperatures, investigation of calcium channel blockers, and characterization of polymer additives. Students will prepare a full journal-style report on the results of their research.